Materials Characterization and Bone Growth Conduction of Calcium Phosphate Linings on Porous Titanium

This is a basic investigation into the mechanisms by which a coating of calcium phosphate ceramics enhances bone tissue ingrowth. Four clearly stated hypotheses will be tested using in vitro preparations to examine bioactivity of these materials. Resolution of the hypotheses should substantially improve capability to design surfaces for bone prostheses without requiring the use of bone cement. Since breaking down of the cement is the primary failure mechanism of current implants, the work has great potential significance.